Resonance Emission Studies of Intra- and Intermolecular Ultrafast Dynamics

9316148 Ziegler In this project of the Experimental Physical Chemistry Program in the Chemistry Divison, Prof. L. Ziegler of Boston University will extend previous studies of ultrafast dynamics in isolated molecules to the condensed phase and clusters, so as to study the effects of the embedding bath on processes in the excited electronic state of the molecule. Spontaneous Raman and fluorescence light scattering techniques will be used to 1) probe the time scales, amplitudes and motional character of solvent/bath descriptions and to determine microscopic details of how these degrees of freedom couple to electronic excita- tions, and 2) how the bath interactions affect the photo- chemical dynamics of the quasi-bound excited state photodisso- ciation of these chromophores. Well characterized molecules embedded in clusters, solutions, and high pressure gases will be investigated. Resonance lineshapes, depolarization ratios, and quantum yields will be measured to determine the vibrational and rotational level dependent dephasing and relaxation rates. Chemical reactions usually require the elevation of molecules to excited states of energy. Since the chemistry of molecules under conditions of high pressure, in solution, or embedded in a solid matrix or in a cluster is affected by their environment, it is important to know and understand these changes in order improve the technology based on chemical reactions. The research undertaken in this project will provide a data base and theoretical model for the reaction kinetics and dynamics of well characterized molecules which are embedded in a condensed phase medium. ***